A Computational Workshop for the Natural Sciences

A scientific computing facility for students majoring in mathematics, physics and chemistry is being developed. The facility provides a computing environment sufficiently powerful and versatile to be useful in many technical courses without being tied to any one course. Prospective majors are being taught the required computational skills during their sophomore year, using examples taken from concurrent course work. Following the introductory course, all instructors are able to assume that every student can access and use a range of computational tools. This common background facilitates appropriate use of computers in the three disciplines.